Role of Mn Oxidizing Bacteria in the Degradation and Utilization of Organic Matter

9416844 TEBO Because most of the nonliving organic matter in the ocean is the decay-resistant residuum of reworked precursor material, is less readily available for heterotrophic utilization. In deep waters where sunlight cannot provide energy to promote further degradation, other sources of energy must be tapped by decomposer bacteria in order to utilize this large organic pool. In this study, the principal investigator will conduct laboratory investigations into the capacity of certain marine bacteria to promote the decomposition of this recalcitrant organic matter by utilizing the oxidizing power released in the oxidation-reduction cycle of manganese. The investigator hypothesizes that bacteria capable of catalyzing the oxidation of Mn might be able to cause the release of simpler organic moieties from the refractory material and that these simpler organic substances could be utilized as nutrients. Through laboratory culture experimentation, the growth efficiency of Mn-oxidizing bacteria and the yield of metabolizable organic moieties will be studied using bacterial cultures and natural organic matter from several sources. Depending upon the outcome of these laboratory studies, the investigator may then be in a position to carry similar studies into the field at some future date in order to assess the quantitative importance of Mn-oxidizing bacteria in marine bacterial production and in the broader biogeochemical context of marine and global organic carbon mineralization.